Acquisition of an Electrospray/Atmospheric Pressure Chemical Ionization Ion Trap Mass Spectrometer to Support Student-Faculty Research at Carleton College

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Carleton College will acquire an Electrospray/Atmospheric Pressure Chemical Ionization Ion Trap Mass Spectrometer. This equipment will enhance research in a number of areas including a) the analysis of peptides synthesized as enzyme inhibitors; b) glutathione-nitric oxide chemistry; c) electrochemically-initiated metalloporphyrin polymer formation; d) analysis of synthetic products such as vanadium (IV) ion sequestering agents; and e) analysis of organic components in atmospheric aerosols. The ion trap mass spectrometer will also be used in formal course work at Carleton.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including biochemistry and atmospheric chemistry.